Conference: International Category Theory

The “2026 International Category Theory Conference (CT)” and “Discoveries and Vistas: Life, the Universe, and Higher Categories (DV)” are tandem conferences scheduled for July 13–18 and July 20–22, 2026, respectively, at Johns Hopkins University in Baltimore, MD. The events are official satellites of the International Congress of Mathematicians in Philadelphia and will attract top researchers from around the world. CT is part of an annual series, and this is the first time in its several decades old history that it will take place in the United States. These events will both showcase and stimulate cutting-edge research in category theory in the United States. NSF funding will broaden participation by supporting travel for U.S.-based graduate students and early-career researchers.

Both conferences will feature invited speakers who will deliver one-hour lectures on their work. CT will also feature submitted participant talks, selected in a competitive process by the scientific committee. DV is shorter and more specialized with invited talks given by a carefully curated selection of excellent international researchers with an explicit focus on higher-dimensional categories. Information about both conferences can be found at ct2026.com